FT-IR for Enhanced Undergraduate Chemistry Instruction

A Fourier transform infrared spectrometer has been acquired and is being used in introductory organic chemistry, advanced organic chemistry, inorganic chemistry, chemical instrumentation, physical chemistry and chemistry research. The FT-IR is being used to supplement existing laboratory techniques for elucidating structure, providing alternate methods of quantitative analysis and allowing for more sophisticated experimentation in upper division courses. In addition, Fourier transform methodology is being incorporated into the laboratory for the first time. Data manipulation and spectral search capabilities of the FT-IR make it a powerful learning tool for students. Experience with the FT-IR is assisting the students in remaining competitive in the job market where FT-IR is fast becoming the norm. The grantee is matching the award from non-Federal sources.